Division of Particles and Fields 2002 (DPF2002);Williamsburg, VA

The proposal requests funding for partial support for the 2002 Meeting of the Division of Particles and Fields (DPF2002) of the American Physical Society on May 24-28, 2002 at the College of William and Mary, Williamsburg, VA. The funds will be used to support graduate students and postdoctoral research associates who might otherwise not be able to afford to attend the meeting.